Phase and Amplitude Dynamics of Rovibrational Wave Packets

Professor Steve Leone of University of Colorado is supported by the Experimental Physical Chemistry program to perform experimental studies on alignment and control of small molecules. The work involves use of shaped ultrafast laser pulses for phase and amplitude control of electron dynamics within bonded species. This proposal seeks to continue development of experimental methods in this area, this time utilizing triatomic molecules, e.g. SO2. In addition, high rotor states of the Li dimer will be utilized. Sophisticated genetic algorithms will be explored as a means of tailoring matter-field interactions to optimize a desired outcome. The work will provide much needed data for theoretical advances in this area.

The ability to control molecular processes utilizing lasers could have implications in areas such as quantum information science. This pioneering study will explore the capabilities and limitations of laser control of molecular events in diatomic and triatomic species.